Formal Verification and Design of System-Level Hardware

This research is investigating formal design and verification techniques for advanced computing devices. The techniques are based on formal verification methods as well as formal testing methods that are well suited for integration into realistic design cycles. The primary concern is that these formal verification techniques scale to larger problem sizes. The focus is on formally characterizing: advanced pipelined processors; input/output systems; and multiprocessor memory systems. Specific projects include: 1. a protocol verification tool; 2. a tool for Presburger arithmetic based on model-checking; 3. proof decomposition methods for pipelined processors and application of similar techniques for transaction processing systems such as busses and I/O systems; 4. combined model-checking and architectural testing techniques for industrial-scale designs of memory systems.